Connecting Drake University to MEDNET

This award enables Drake University to connect to NSFNET through a 56,000 bit per second link to the mid-level network MIDNET. Connection to NSFNET provides the faculty and students with much higher speed access to supercomputers, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. Primary applications include file transfers, electronic mail communication between local and remote researchers, and remote login to and use of supercomputers and other research facilities.